Thermoradiative Energy Conversion Devices Based on Narrow Bandgap Antimonide Semiconductors

Energy conversion in thermoradiative (TR) cells will be explored as a new approach for waste
heat generation or energy harvesting from thermal sources. TR cells can be directly coupled to the heat source and offer an attractive means for thermal energy conversion with reduced size, weight, and complexity. Success of high-performance TR cells would provide a transformative energy conversion device technology that offers simplified systems for waste heat conversion for industrial processes, space power systems, and thermal energy harvesting in microsystems. While energy conversion projections have been optimistic for TR cells (power density > 100 W/m2 and conversion efficiency > 20 % for cell temperature of 500K), experimental demonstrations have been lacking. This work aims to bridge the gap between theoretical predictions and experimental demonstrations to prove the TR energy conversion concept through identification and detailed studies of realistic TR energy conversion materials, design and implementation of TR cell device architectures, and through strategies to overcome loss mechanisms that limit power conversion efficiency. Research activities on physics-based modeling and experimental materials and devices will be integrated with educational and outreach activities connected to the theme of energy conversion.

This project will explore the underlying physics of narrow bandgap semiconductor materials that will determine practical TR cell power conversion efficiencies. The fundamental radiative recombination properties and limiting non-radiative loss mechanisms of Auger and Shockley-Read-Hall recombination will be studied in detail at TR cell operating temperatures and charge carrier injection levels, where there is currently a lack of experimental knowledge. The physical properties will be used to inform the design and fabrication of optimal TR cell device architectures, followed by subsequent experimental fabrication and testing of TR cells based on InAsSb and InSb to provide critical feedback on power conversion and limiting loss mechanisms. Strategies will be pursued to overcome loss mechanisms, including suppression of Auger recombination in type-II multiquantum wells or superlattices, barrier-integrated architectures such as pBn to reduce Shockley-Read-Hall recombination, and photonic design to maximize optical extraction efficiency. Public access online educational materials will be developed based on the research activities of this work, such as a TR cell calculator. Activities will include participation in local outreach activities aimed at broadening participation in science and engineering. Undergraduate summer research projects will be offered in each year of the program for students from regional institutions with primarily undergraduate programs.